Behavioral Sciences Computer Laboratory

The Behavioral Sciences Computer Laboratory is designed to provide students in the undergraduate behavioral science course sequence at Union College with the computer hardware and software necessary to develop statistical analysis and research methodological skills. The project will establish a facility with a networked cluster of fifteen computer workstations. In addition to formal laboratory exercises, the facility will also support student-selected independent research projects. This project provides students with access to modern computer equipment and greatly enhances their educational and career opportunities.